Object Coding: Strategies, Studies and Implementation

Object-oriented systems exhibit a very high rate of object creation, but most of the objects are short-lived. As a result, memory- management overhead is significant. This project is concerned with an application-specific coprocessor architecture to speed up object creation and memory reclamation in object-oriented systems. The architecture supports a bit-vector approach to dynamic storage allocation and liberation. Newly created objects reside in a cache which is reference counted. It is expected that most objects will die before they age out of the cache, drastically reducing the number of references to main memory. Many existing computer architectures would require only minor compiler modification to incorporate and benefit from this coprocessor.